Computer Science and Engineering Major Scholarship Program

Scholarships are being awarded to full-time students majoring in engineering or computer science who demonstrate both academic potential and financial need. Twenty qualifying freshmen students are receiving $3,000 annually for four years and forty upperclassmen are reciving $3510 annually for two years. Special emphasis is being placed on recruiting members of groups underrepresented in engineering and computer science. The scholars are engaged in collaborative learning experiences, have access to tutoring, and receive mentoring and individualized advisement. The opportunity to engage in faculty supervised research is also available to the scholars.